NSF Young Investigator: Fault Tolerance in Distributed Systems

The first area addressed in this project is fault-tolerance in distributed systems with primary focus on continuous systems operation and collaboration. Collaboration is achieved when multiple distributed entities contribute toward a common goal. For collaboration to be successful in a distributed system, the goal must be achieved in a potentially unstable network environment. The second area is the investigation of telecommunication switching architectures. Specifically, the design and deployment of high-speed multimedia networks.